Collaborative Research: Improved Boundary Element Methods for Electrostatics of Interacting Proteins in Solvent

Protein molecules are basic components in all forms of life, and electrostatic effects play a key role in
determining protein structure and function. However studying these effects experimentally is difficult,
and there is great interest in using computer simulations to advance this area of biochemical research.
This project will contribute by developing new mathematical algorithms to improve the accuracy and
efficiency of these simulations. Potential biomedical applications include (1) protein-ligand binding,
which is important for synthetic drug design, and (2) protein folding, which is important for
understanding how misfolding causes disease. The investigators will collaborate with bioscientists, and
the software developed in the project will be made available in open source format for use by the
scientific community. The project results will be disseminated through conference and seminar
presentations, and publications in scientific journals. The project will develop the national workforce in
computational mathematics by training junior personnel at the postdoctoral, graduate student, and
undergraduate student levels.

Biochemical simulations of charged particle systems are often limited by the cost of computing long-
range electrostatic interactions. To address this issue the PIs have developed a treecode-accelerated
boundary integral (TABI) method to solve the Poisson-Boltzmann (PB) equation for the electrostatic
potential of a solvated protein. In this project the PIs will extend the TABI solver to the challenging case
of interacting proteins in solvent, focusing on subtle dielectric and ionic structural effects. The work
entails advances in modeling, improvements in treecode and boundary element methods, and
applications in molecular biochemistry including the following topics: (1) The TABI code will be
extended to compute the binding energy of a solvated protein-protein complex. (2) The treecode will
be adapted to accelerate computations of the total correlation function in the Reference Interaction
Site Model (RISM) which provides a physically accurate description of the water structure near the
solute/solvent interface. (3) Explicit ion simulations will be carried out to validate the PB and RISM
simulations, and to investigate the effect of finite ion size on the interfacial charge structure. (4) The
treecode will be improved by implementing a more effective multipole acceptance criterion, and
parallel CPU and GPU implementations of the treecode will be developed. (5) A new method for
computing electrostatic PB forces will be tested for application in molecular dynamics simulations of
interacting proteins in solvent. (6) Efficient computation of pH-dependent effects in solvated proteins
will be demonstrated using TABI.